REU: Research Experience for Undergraduates During the Convection and Precipitation/Electrification Experiment

Five undergraduate students will be selected to participate in the Convection and Precipitation/Electrification Experiment (CaPE), being conducted in east central Florida (8 July - 18 Aug 1991). The students will assist various scientists in ways designed to promote their interest in science as intended under the REU program.